Minority Research Initiation Planning Grant

This Minority Research Initiation Planning Grant will provide resources to the principal investigator to assist him in the preparation of a regular proposal in the area of magnetic multilayers. The principal investigator has been very effective in establishing research collaborations with several institutions, including the University of Texas, Austin, and the Naval Research Laboratory, Washington, D.C. %%%